Multimedia Careers Program

9711742 Nikias This award provides funds to the Engineering Research Center at the University of Southern California entitled Integrated Media Systems Center to develop a set of interactive, multimedia modules for instruction in the Multimedia Careers Program as part of the proposed Multimedia university Academy at the University of Southern California. These instructional materials will be designed to be transportable to other facilities and will be developed closely with industry. The modules will include topics on the principles of multimedia systems, principles of computing, computing tools, communications, design and visual arts, and audio and production cycle.